Mathematical Sciences: Applications of Empirical Processes to Statistics and Econometrics

The principal investigator will continue his work in the general area of empirical processes, paying particular attention to the development of asymptotic techniques that can be applied to non-standard problems in Statistics and Econometrics. Specific applications will include: the theory of least absolute deviations estimators in time series models; discrete choice models; and the extension of empirical process results for independent variables to cover various types of dependent variables.